RIA: Designing Concurrent Systems Using Hierarchy of Communication Speeds

The layered approach to system design has become popular in designing correct systems because of the ease of visualizing the execution as a sequence of processes each resulting from the execution of a layer. This research aims at a lighter-weight approach compared to sequentialization of processes. It defines a notion of communication speed as it is relevant to distributed systems, and a hierarchy of communication speeds as an alternative to sequentialization of processes. It also defines some synchronization abstractions that combine the concept of hierarchy of communication speeds and some channel primitives. These abstractions result in the same ease as sequentialization of processes and are expected to improve the system efficiency in a layered system. They are also useful for designing concurrent programs. This research has several objective. 1) Develop a framework of thinking based on speeds of communication. 2) Develop some implementations of these abstractions. 3) Develop a scheme for decentralized control using hierarchical channel Primitives. 4) Implement a distributed operating system using hierarchical channel primitives and evaluate its performance. 5) Develope concurrent algorithms that use and a concurrent programming environment that supports hierarchical channel primitives.